Planning Grant: Industry University Cooperative Research Center (IUCRC) for Bioanalytic Metrology (CBM), Purdue University

This proposed activity will undertake organizing activities to launch a new Industry-University Collaborative Research Center for Bioanalytic Metrology, a joint effort of the University of Notre Dame, Indiana University, and Purdue University. The effort will bring together a national coalition of analytical instrument makers, pharmaceutical companies, clinical practitioners, academic researchers, and other stakeholders, and unite them in a mission to design and build new, industry-critical systems for chemical measurement and bioanalysis. These systems are needed to address a fundamental gap in U.S. research and development; namely, the ability to fully identify, characterize, track, and model reactivity of biological molecules within human cells. If established, the technical spin-offs from the center will have direct and tangible benefits for drug discovery, molecular diagnostics, clinical biotechnology, and fundamental biochemistry. Moreover, the capabilities envisioned by the center are necessary for the implementation of other long-term scientific objectives, such as precision medicine. In addition to this knowledge transfer, the center will also help train a new and diverse bioanalytical workforce. The outcomes of the planning exercise will form the basis of a proposal to the National Science Foundation to establish the Center for Bioanalytic Metrology (CBM).

Genomics, proteomics, metabolomics and bioinformatics provide a holistic framework to study biological systems with applications ranging from fundamental studies of biological systems to the design and use of diagnostics and therapeutics for personalized medicine. To realize the promise of these technologies, however, we must increase the depth of analysis of proteins, metabolites and other biomolecular species beyond current limits, thus reducing the fraction of detected?but unidentified?species known as the “dark molecules of life.” This planning grant lays the groundwork for the CBM, joining expertise at Notre Dame, Indiana, and Purdue. Planning activities will bring together analytical instrument makers, pharmaceutical companies, clinical practitioners, and leading academic research groups in analytical sciences and engineering. In addition to the technical objectives, the CBM will also: i) enable technology and knowledge transfer to the industrial sector, ii) enhance graduate and undergraduate education activities specifically designed to increase diversity of the STEM workforce, and iii) provide valuable updates to chemistry, biology, computer science, and engineering curricula through the incorporation of research into existing undergraduate and graduate classes.